XVI International Conference on Atomic Physics

This grant is for support of students and young researchers to attend the XVI International Conference on Atomic Physics in Windsor, Ontario, August 3-7, 1998.